Euler Systems and Elliptic Curves

The investigator and his coworkers study elliptic curves, special values
of L-functions, and related topics. Some of the most interesting open
questions and conjectures in arithmetic algebraic geometry relate
arithmetic invariants with special values of L-functions. Iwasawa theory
and Euler systems have proved to be among the most successful tools for
attacking these problems, by serving as a bridge between the algebraic
world and the analytic world. The investigator continues to pursue this
approach, by extracting additional information from Euler systems and
their "derivative" Kolyvagin systems. In another direction, the
investigator and his colleagues study ranks of elliptic curves,
especially the asymptotic distribution of ranks in families of quadratic
twists.

Elliptic curves play a central role in many parts of mathematics
including its most applied areas. For example, elliptic curves are used
in algorithms to encrypt data for transmission, and for efficient digital
signatures. In its most basic form, an elliptic curve is a special kind
of polynomial equation in two variables. Historically number theorists
are interested in finding solutions of these equations in which the
variables take values which are either whole numbers, or fractions. The
rank of an elliptic curve is a basic invariant which measures the size of
the set of solutions. The investigator and his coworkers study ranks of
elliptic curves and their interrelations with other mathematical objects
and concepts. These questions are related to the cryptographic
applications of elliptic curves, which come about by considering
solutions in which the variables take values in finite fields.